NSF FF: Planning: An AI-Driven Simulation Platform for Interdisciplinary STEM Skill Development and Career Exploration

This FINDERS Foundry award improves high school students's understanding the connection between classroom learning and real‑world careers, especially in fast‑growing fields which utilize and contribute towards AI. Designing a platform which brings together career information tools, hands‑on robotics activities, and simple AI simulations, students gain personalized feedback about ongoing skill development alongside career pathways for future exploration. Teachers, families, researchers and technologists experts engage in a collaborative design process to ensure the platform is clear, engaging, and accessible. Providing students with connections between learned content and potential application to current careers alongside insight into how AI is enacted effectively and responsibly ensures stronger learning outcomes. This award connects school learning with real-world STEM opportunities inspiring both confidence and requisite skills for student success.

This FINDERS Foundry award co-creates a next‑generation high school STEM ecosystem: a Career Intelligence Engine for individualized skill‑gap analysis, an Ethical AI Simulation Studio for structured reasoning about socio-technical dilemmas, and an automation sandbox that transforms natural‑language ideas into robotics and 3D‑printing code. Design‑based implementation research is enacted to iteratively refine system architecture, develop early modules, and create evaluation instruments supporting career identity insights, ethical reasoning with AI, and computational‑thinking competencies. By emphasizing interoperable, open‑source module development, the three components ensure long‑term scalability and cross‑disciplinary applicability of the designed innovation. Anticipated outputs include prototype modules, validated assessment tools, and a roadmap for broader adoption across high school STEM programs. The technical contribution lies in integrating personalized skill growth analytics, ethical reasoning, and hands‑on computational automation within a unified framework to prepares students for emerging workforce pathways.